Analysis and Classification of Differential Equations with Orthogonal Polynomial Eigenfunctions

The PI will investigate several problems regarding the analysis and
classification of orthogonal polynomials to spectral-type differential
equations. The most general of these problems is the so-called
BKS(N,M) problem which seeks a classification of all ordinary differential
equations of integer order N, up to a real linear change of variable, that
has a sequence of polynomial eigenfunctions which are orthogonal with
respect to a Sobolev bilinear form involving the M-th derivative of
functions. When M=0, this problem is classical with key results due to
Bochner and H. L. Krall. Recent progress by Littlejohn, K. H. Kwon and D. W.
Lee has been made on second-order equations in the cases M=1 and M=2.

These problems in the theory of orthogonal polynomials and differential
equations are classical and have been an outstanding challenge to
mathematical analysis since 1929. Applications of these problems abound in
many areas of mathematics, applied mathematics, physics, and engineering.
Indeed, the classical second-order equations having orthogonal polynomial
solutions are important in many areas of applied mathematics and physics,
including quantum mechanics. Moreover, a complete solution to the BKS(N,M)
problem will require an indepth knowledge of distributions, difference
equations, moment theory, Lie algebras, complex analysis, and operator
theory. The applications of the higher-order examples look very promising.
Indeed, each of the examples that we find will have an impact on applied
sampling and interpolation theory with applications to engineering (theory
of communication and signal processing). Recent improvements in both theory
and techniques, by mathematical colleagues throughout the world, lend hope
that these difficult problems will soon yield global solutions.